1994 Gordon Research Conference on Photonuclear Reactions; Tilton, New Hampshire; July 31 - August 5, 1994

9410846 Sandorfi A Gordon conference will be held in the series on Photonuclear Reactions at Tilton School, Tilton, NH July 31- August 5, 1994. This meeting will focus on topical questions in nuclear physics, including the structure of baryons, quark sub- structure in nuclei, the charge structure of the neutron, the response of nuclear systems to different probes, multi-nucleon correlation studies, meson exchange currents and relativistic effects, and finally fundamental symmetries. Many young people and many leaders in the field will attend, both from the US and abroad. ***